Conference: Organization of the 1995 Organic Thin Films Topical Meeting to be held in Portland, Oregon on September 11-14, 1995

9527362 Hennage Joint ACS/OSA sponsorship will provide an interdisciplinary forum for the presentation and discussion of new and previously unpublished results on advanced organic thin film materials with potential applications for photonics. Materials synthesis, fabrication, and processing will be covered in depth and related to chemical, physical, and optical properties. Theoretical and experimental studies regarding these properties will be described. Materials exhibiting electroluminescence, second-order, third- order, and photorefractive nonlinear optical properties will be given particular emphasis. Both active and passive photonic device applications will be discussed with a focus on the relationship between device performance and materials properties. ***